Late Cenozoic Rates of Erosion and Sediment Deposition in the Himalaya and Adjacent Basins

The ongoing collision of the Indian subcontinent with southern Asia has produced the Himalayan Range and the Tibetan Plateau; the highest present-day topography on the earth's surface. Decades of structural studies have documented large amounts of shortening within the Himalaya, and more recent isotopic studies have begun to delineate the history of uplift during this shortening. Large amounts of erosional and tectonic denudation are required to reconcile the calculated crustal uplift with the present topography. This denudation has caused a massive sediment flux from the hinterland into the basins bounding the Himalaya: the Indo-Gangetic foreland, the Tarim basin, the Indus Cone, and the Bengal Fan. The research proposed here will attempt to examine this sediment flux to the south of the Himalaya in order to determine: 1) how much and at what rates sediment has been stored in the past within the potential sediment sinks bounding the southern margin of the Himalaya; 2) the presence or absence of synchronous changes in the rates of sediment storage between the foreland and the marine fan systems and within different parts of the foreland (partitioning of the sediment load); 3) modern rates of sediment delivery out of the hinterland for a major and minor river that debouch into the Himalayan foreland in northern Pakistan; 4) an estimate of the amount of sediment storage that occurs within the hinterland itself and a comparison of the relative storage in monsoonal dominated versus semi-arid, nonmonsoonal drainages; and 5) volumetric approximations based on digital elevation data of erosional losses within selected parts of the uplifted hinterland.